Airborne Observations and Storm Modeling in Support of the Severe Thunderstorm Electrification and Precipitation Study (STEPS)

This project investigates the links between hail formation, storm electrification, and lightning in severe storms. It includes the analysis of cloud electrical and microphysical data collected by the storm-penetrating T-28 aircraft and modeling the production of charge and precipitation with a three-dimensional numerical cloud model. The observations and modeling results will be shared with other investigators on the STEPS program (Severe Thunderstorm Electrification and Precipitation Study) conducted in Kansas in the early summer of 2000. The other investigators will provide observations that include polarimetric radar measurements to identify precipitation type, dual-Doppler radar measurements to define the kinematic structure of thunderstorms, balloon-borne electrical field measurements, and three-dimensional maps of lightning strokes measured by a VHF lightning mapper. A synthesis of the electrical, microphysical, and storm-structure data supplied by STEPS will lead to a better understanding of the mechanism of lightning formation in thunderstorms and the relations between electrical properties of storms and the precipitation they produce.